TC: Small: Collaborative: Protocols for Privacy-Preserving Scalable Record Matching and Ontology Alignment

Many application domains, such as intelligence, counter-terrorism,
forensics, disease control, often need to cross-match multiple very
large datasets, such as watch lists. Because those datasets may
contain privacy-sensitive or confidential information, the use of efficient
privacy-preserving protocols for cross-matching different datasets is
crucial. The problem of privacy-preserving record matching has been
addressed by the use of Secure Multi-party Computation (SMC) protocols.
Under these protocols, the data are converted to series of functions
with private inputs. However a major drawback of SMC-based protocols
is that they involve extensive cryptographic primitives such as
homomorphic encryption which do not scale to the size of practical
problems. As a result, SMC-based protocols cannot be used for resource
constrained data-intensive privacy-preserving record matching approaches
directly. This project develops a novel approach based on the observation
that to apply SMC to practical applications, one needs to bridge the gap
between the size of the datasets that can efficiently be matched using
SMC protocols and the size of the datasets seen in practice. The approach
taken by the project tackles the problem from a novel angle by developing
techniques to reduce the size of practical problems by employing
privacy-preserving data sanitization methods. The project thus solves
the privacy-preserving data matching problems through the following
steps. First, to protect the privacy of data subjects, useful statistics
about data is gathered using differential privacy. Second, differentially
private statistics are shared among the parties involved in data matching.
These parties then identify potential matching pairs where fruitful matching
may occur. Such a step is referred to as data blocking. Finally, SMC
techniques are applied to these candidates to accurately cross-match
information. In addition to syntactic matching, semantic matching is supported
by which records are compared according to some semantic similarity functions.
The semantic matching protocols includes techniques for matching and
aligning ontologies, as the use of ontologies is crucial for an effective
semantic matching. This project is the first to use differential privacy for
efficient privacy-preserving record matching that also leverages semantics-based
approach and a privacy-preserving approach to ontology alignment. The techniques
developed in the project are the first to achieve efficient privacy-preserving
matching of large scale data sets using differential privacy, thus overcoming
the scalability problems of conventional SMC techniques. The approach developed
in this project expands the opportunities and contexts for data use by enabling
the cross-match of multiple data archives, possibly owned by different parties,
without violating the privacy of the data. Many applications, of interest
for our society, will benefit by such opportunities.
For further information see the project web site at the URL:
http://www.cs.purdue.edu/homes/bertino/prirelink